Acquisition of Scanning Electron Microscope and X-Ray Diffractometer for Multi-disciplinary Research and Education

9512324 Kumar A scanning electron microscope and x-ray diffractometer will be acquired and utilized for multi-disciplinary research and education at the University of South Alabama. These are two basic pieces of instrumentation for materials research. The scanning electron microscope permits analysis of the microstructural characteristics of materials whereas the X-ray diffractometer identifies their crystallographic structural properties. The instrumentation will be used in support of several research programs which include laser deposition and processing of hard coatings and of high temperature superconductor films, synthesis and characterization of molecular sieve zeolites and of metal doped glassy carbon for electrocatalysis, and development of crystal growth inhibitors for medicinal purposes. The instruments will also be used to support curriculum development. Students in the Materials Science Laboratory will utilize the instruments for several experiments on the relationship between structure, properties, and processing of materials. %%% The scanning electron microscope and X-ray diffractometer are essential instruments for materials research. Both are entry level instruments, quite appropriate for undergraduate and masters level education and research programs. As such they will have a substantial positive impact upon the infrastructure at the University of South Alabama. ***